The Physics of Dilute Quantum Gases

0109255
Ho
This award supports fundamental theoretical research to study the new dilute quantum gas systems which have been made possible by recent experiments at JILA and MIT. Projects include studying the physics of Bosons and Fermions in scalar and spinor limits (i.e. in magnetic and optical traps), the physics of mixtures of quantum gases, many-body effects in optical lattices and in the fast rotating regime, and the dynamics in the strongly interacting limit, i.e. near the Feshback resonance.
%%%
This grant supports theoretical research to study a wide range of physics in new dilute quantum gas systems which have been made possible by recent experiments at JILA and MIT. These experiments have, for the first time, been able to create a new state of matter, the Bose-Einstein condensate, which was predicted many years ago. The PI will investigate a wide range of phenomena in these dilute quantum gas systems. The emphasis will be on fundamentally new aspects of these systems, effects of strong interaction, many-body effects and possible applications. This award also supports graduate level education in condensed matter theory.
***